Presidential Young Investigator Award (Computer and Information Science)

This project covers research activities in two areas of Artificial Intelligence: knowledge-based expert systems and machine learning. One research thrust focusses on developing a knowledge-based consultant system to aid in the design of digital VLSI circuits. This research involves extending current methods for developing rule-baszed expert systems, by applying them to design tasks, and by integrating rule- based methods with algorithmic methods for dealing with different aspects of the design task. The second research area, machine learning, has focussed on developing the LEX system which learns problem-solving heuristics by generating and solving practice problems. This research has led to development of a domain-independent technique (goal-directed learning) for generalizing from examples. Research on machine learning over the coming year will include an attempt to apply these techniques to the task of learning rules for VLSI design.